Asymptotic Problems for Stochastic Process and Differential Equations

The investigator studies the averaging principle and effects related
to large deviations in dynamical systems. He considers perturbations of
systems with conservation laws, in particular, of Hamiltonian systems.
If an integral of motion has more than one well, the evolution of the
slow variables occur on a graph or, in the case of several first
integrals, on an open book, and even pure deterministic perturbations,
in general, lead to stochasticity of the limiting slow motion. In this
case the investigator studies the limiting stochastic process, in
particular, he introduces a relative entropy and studies large deviations.
This allows to describe the motion of an incompressible 3D-fluid which is
close to a planar motion and reaction-diffusion-convection in such a
fluid. The investigators studies also stochastic resonance and
metastability as manifestation of large deviations.

Long-time effects caused by relatively small deterministic and
stochastic perturbations of a system are considered in this proposal.
The investigator considers problems, where various processes in the system
have different rates (fast and slow processes). This allows certain
simplification and efficient description of the long-time behavior.
Another approach considered by the investigator concerns systems, where
long time behavior is defined by small probability deviations from their
typical behavior. These deviations, which have very small probability on
each fixed time interval, occur sooner or later and define long time
evolution of the system. Problems of this type arise in many technical,
physical, and biological systems as well as in sociological models.